Designing Algorithms for NP-Hard Graph Problems

CCR-98-20965
Khuller, Samir

This project will conduct a combination of theoretical and practical explorations of algorithms for graph theoretic problems in graph connectivity, facility location, distance preserving subgraphs, multimedia storage and data broadcast. Emphasis will be on good approximations for NP-hard problems for problems in optimization. Particular emphasis will be on greedy methods and heuristics for algorithms.